Exploratory Synthesis of Complex Oxides

9308530 Sleight New complex oxides which contain at least four elements will be prepared, and their properties and atomic structures will be determined and related to bonding and electronic structure. Generally, elements from different sections of the periodic table are selected. A systematic study will be made of complex osides which contain a transition metal cation together with a post- transition metal cation and a pre-transition metal cation. At least in the initial stages, specific properties will not be sought. Rather, the emphasis will be on developing systematic approaches to the synthesis of new complex oxides. The proposed work seeks to identify unknown structures and properties that cannot exist for simple oxides. The focus will be on single phase materials rather than composites. The overall goal of this exploratory synthesis program is to escape the intellectual confines of current knowledge base and to discover new materials that are useful, inexpensive, nontoxic and easy to manufacture. Oxides have already been widely studied, however, much remains to be accomplished with oxides, particularly because oxides generally have advantages over other materials both in ease of synthesis and in terms of high stability in the presence of air. ***